Cyberinfrastructure for Computer Architecture Design and Evaluation

Innovation in computer hardware, ranging from the simplest consumer devices to the most powerful scientific computers, relies on availability of software and hardware design and evaluation tools. The development of the cyberinfrastructure is itself a significant undertaking due to the complexity of today's computers and applications. This complexity has lead to ad-hoc infrastructure that is difficult to quickly extend in new ways, minimally tested, and arduous to use for comparing innovations. This burden greatly impedes progress of computer hardware research and development. The community-driven creation and maintenance of robust cyberinfrastructure can overcome this challenge by leveraging and combining effort and investment made by multiple groups. This workshop sets a foundation to grow a community for developing more reusable, better tested and interoperable tools. The energy, performance, reliability and cost of information technology will be further improved at a faster pace as a result.

The cyberinfrastructure for computer architecture (hardware) includes software simulation, hardware emulation, analytic models and benchmarks for CPU/cache, network-on-a-chip (NoC), memory and storage. These tools are used to analyze existing systems and their bottlenecks, develop new hardware capabilities, and study and evaluate design trade-offs. While the tools are deeply ingrained and fundamental to computer architecture, the architecture cyberinfrastructure suffers badly from fragmented, ad hoc and disparate efforts, arising from research expediency and development burden. To address the situation, this workshop brings together tool developers and users to assess the current state of the cyberinfrastructure and to establish strategies and build a community for more coordinated and joint development. The workshop develops 1) an assessment of the current state of the cyberinfrastructure; 2) roadmaps of needed tool capabilities and support for future technologies; 3) ways to leverage and combine disparate development effort by multiple groups; and 4) a methodology to establish and sustain a cohesive community that builds and supports a set of open-source, extensible, scalable, validated and interoperable tools. The workshop outcomes serve building a community framework for simulating computer architecture.